Psychobiology Summer Research for Undergraduates

9322052 Rowland This award provides support to the Department of Psychology at the University of Florida to establish an REU site in the field of psychobiology. Applicants will be solicited from schools in the Southeastern United States, with special emphasis on smaller undergraduate and/or minority institutions at which students do not otherwise have an opportunity for gaining research experience. The eight selected applicants will spend 12 weeks at UF, during which time they will complete a small research project under the direct supervision of a faculty mentor. Ten primary faculty, all with active research programs in the general field, will participate along with several affiliated faculty and graduate assistants. A variety of observational, surgical, biochemical, computer, and other analytical techniques are available to the students. In addition to research, students will attend a classroom course which will cover a range of relevant issues including faculty research, ethical issues, experimental design, and principles of psychobiology. The students will learn communication skills by giving interim and final oral reports of their research projects. ***